Collaborative Project: The OCKHAM Library Network, Integrating the NSDL into Traditional Library Services

This NSDL Services project is developing networked middleware to facilitate and expand access to the content and services of the NSDL through the existing national infrastructure of traditional libraries and their service programs. Additionally, the collaborative project team is creating a reference model for integrating the NSDL into traditional library services; evaluating the utility, usage, and impacts of the local library tested services on the participating campus communities via web log analysis, focus groups, and usability studies; and disseminating results and facilitating growth of the network among an expanding group of institutional partners. By stimulating an extensible framework for networked peer-to-peer interoperation among the NSDL and traditional libraries, this project is also advancing the dialog between librarians and researchers.